Dislocation-Based Deformation Mechanisms in Metallic Nanolaminates: An Experimental and Theoretical Study

0072010
Anderson
This effort involves a close research interaction between dislocation
mechanics modeling and novel processing and transmission electron
microscrope experiments that will lead to a fundamental understanding
of deformation mechanisms in layered nanomaterials. A principal goal
of this research is to understand the limiting strength of such
materials to plastic deformation, as the thickness of individual
layers in the structure are decreased to the nanometer scale. To do
so, the investigators will observe directly the generation, motion,
and interaction of dislocations in layered nanomaterials over a range
of individual layer thickness. Particular attention will be given to
the critical conditions for which interfaces are no longer able to
confine dislocation motion to individual layers. These observations
will couple closely with theoretical treatments of the nucleation and
motion of dislocations in confined layer geometries, and the critical
stress to transmit slip across grain boundaries and interfaces. This
research will extend our knowledge of how to develop ultra-high
strength two-phase layered nanomaterials through the choice of
phases, the scale at which they are employed, and the structure of
the interfaces and grain boundaries which serve to confine
dislocation motion.
***